Hindered Diffusion of Colloidal Particles Very Near to a Wall

The objectives of this proposal are (1) to improve the total internal-reflection microscopy (TIMR) to measure absolute distances between a submicron particle and a solid wall, and (2) to study the dynamics of Brownian motion of particles in the vicinity of a solid wall. TIMR technique was initially developed by Dr. Prieve. It measures the interaction potential between a particle and a wall. Interaction forces as small as a few picograms have been experimentally determined with this technique. In this project, TIMR will be applied to study the dynamics of hindered Brownian motion of a sphere and diffusion coefficients near a wall. The results can be related to the rates of flocculation and deposition of particles from moving fluids.